Workshop on Low-Dimensional Contact Geometry

Proposal: DMS-0075477
PI: Yakov eliashberg et al

Abstract:
The program ``Low-dimensional contact geometry" is organized jointly
by the American Institute of Mathematics (AIM) and the Department
of Mathematics of Stanford University. It will run from
mid-August till mid-December 2000. The program will end with a
a Contact Geometry Workshop. The goal of the program is to capitalize
on recent progress in contact geometry. It seems that the time is ripe now
for new breakthroughs in the field, and that the concentration of both
established and young researchers in contact and symplectic geometry and
related areas, as well as participation of several graduate students, may
help to produce new remarkable results. The organizers feel that a
coherent picture of contact geometry in 3 dimensions is within reach.
In particular, the participants will try to achieve a complete
classification of contact structures for large classes of 3-manifolds,
to make further advances in the theory of Legendrian and transversal
knots in contact 3-manifolds, and to establish further properties of contact
3-manifolds which serve as boundaries of symplectic 4-manifolds.

Contact geometry was born more than two centuries ago in the work of
Huygens, Hamilton, Jacobi as a geometric language for optics. It was
soon realized that it has applications in many other areas, including
non-holonomic mechanics and thermodynamics. One encounters contact geometry
in everyday life when parking a car, skating, using a refrigerator, or
watching the beautiful play of light in a glass of water. Sophus Lie,
Elie Cartan, Darboux and many other great mathematicians devoted a lot of
their work to this subject. However, till very recently most of the results
were of a local nature. With the birth of symplectic and contact topology
in the Eighties, the subject was reborn, and the last decade witnessed a
number of breakthrough discoveries. There were found new important
interactions with Hamiltonian mechanics, symplectic and sub-Riemannian
geometry, foliation theory, complex geometry and analysis, topological
hydrodynamics, 3-dimensional topology, and knot theory.

Details of the program can be found at http:/math.stanford.edu/contact.html